Oceanographic Instrumentation, R/V CAPE HENLOPEN 2003

0304934
Deering
This award to University of Delaware provides support for the acquisition of oceanographic instrumentation to be used on R/V Cape Henlopen, a 120' research vessel operated as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet. Specifically, support is recommended to acquire three new oxygen sensors and a fluorometer for shared-use operation. These acquisitions should provide a substantial advantage to marine scientists using R/V Cape Henlopen in their research during 2003 and future years.
***